Improvements in Physics "Advanced Laboratory" Courses

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Braden of Georgia Institute of Technology Main Campus.